Shape and Topology Optimization of Three-Dimensional Shells with Stamping-Bead Stiffeners

9500170 Gea This award provides support for the development of an integrated design tool for optimizing the shape and topology of three-dimensional shells with stamping-bead stiffeners. A novel approach, Multi-material Design Domain Method (MDDM), will be used to model different bead configurations. In conjunction with a Generalized Convex Approximation (GCA), the optimal shape and layout of beads will be obtained. Based on the direction of principal strain, the orientations and configurations of bead design will be precisely identified. To ensure that the final design has the optimal shape and topology, a sizing and shape optimization process will be integrated into this method. Once the proposed methodology is developed, it will benefit our automotive and aerospace industries in three-dimensional shell assembly design. This method will shorten product development time and produce optimal designs with the greatest saving in resource. The concept of this method can also be extended to many other applications and result in a new tool for product design. Consequently, it could lead to products with higher quality and the lower cost being brought to the marketplace more rapidly.